Transition-Metal Nitrido Compounds

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program with a contribution for instrumentation from the Office of Multidisciplinary Activities supports reseach on bridged nitrido compounds by Dr. Nancy M. Doherty, Chemistry Department, University of California at Irvine. New polynuclear, oligomeric, and polymeric compounds in which nitrido ligands link transition metals will be synthesized. A variety of metals would be used, including vanadium, tungsten, ruthenium, and osmium. Although a simple ligand, nitride engages in pi-bonding that can result in large metal-containing structures with a variety of electronic, magnetic, and optical properties. Spectroscopic and physical methods will be used to characterize the compounds so that composition and structure can be correlated with reactivity and electronic properties. The goal of the investigation is to achieve a molecular level understanding of polymetallonitrides by building a series of compounds ranging from small, soluble polynuclear species that are amenable to characterization in solution to large polymeric materials. In this way, more systematic approaches to synthesis and control of bulk properties might be achieved. Metal compounds containing nitride have potential for development as electronic materials, but a controlled route to their synthesis has not been found. By examining the steps in the formation of crystalline metal-nitride chain compounds, understanding of the details of formation and of the relationship of structure and properties may result. The findings are relevant to the rational design of metal nitrides and the mechanism of forming polymeric inorganic materials in general.